Collaborative Research: Evolutionary mechanisms of skewed gender ratios and reproductive plasticity

Roundworm infections cause several debilitating diseases in both animals and agricultural plants, yet relatively little is known about the factors that regulate either the population dynamics and/or infectivity of most parasitic or free-living nematode species. This proposal aims to uncover the mechanisms by which a specific set of closely related roundworm species regulate the ratio of males, females, and/or infective/dispersive larval forms amongst their offspring. A combination of cellular, chemical and genetic approaches will be used. Broader impacts of the proposal studies include establishing research and student training links between a primarily undergraduate institution (William & Mary) and an institution with a large proportion of minority students (UT-Arlington). In addition, these studies may ultimately lead to new avenues for controlling roundworm infections.